Facility for High Performance Mass Spectrometry

This award provides funds for continuation of the Mid-Atlantic Mass Spectroscopy Laboratory (MAMS) at Johns Hopkins University. Funds provide support for the laboratory's collaborative research activities, from which investigators at a number of institutions benefit, for research training at the graduate and post-graduate level, and for continued technique development activities. Dr. Cotter is an outstanding young investigator known particularly for his technique development activities, especially in use of time of flight (TOF) and plasma desorption mass spectrometry. Collaborative projects include structural studies of lipids and composition of lipid membranes, structure function relationships in enzymes and other proteins, and structures of oligosaccharide side-chains on glycoproteins and glycolipids. In the last decade or so, mass spectrometry (MS) has become a technique of increasing usefulness to biologists and biochemists. MS is of particular use in the analysis of lipids, of polysaccharides, of the types and sites of naturally occurring modifications of proteins, and of other aspects of protein structure including primary sequence. Because of the expense of their purchase and operation of the spectrometers, the disparate types of biological problems for which MS is useful, and the real but often infrequent need for MS in a given research project, mass spectrometry is particularly suited for central facilities such as MAMS that provide analyses for investigators at a number of institutions. The focus on collaborative research insures that the projects undertaken are not simply routine analyses, but instead are challenging problems that help provide a suitable environment for continued development of MS techniques.